GOALI/IUCP: Evaluation of Dynamic Performance of Hexapod Machine Tools

DMI-9800806 Wiens The objectives of this GOALI project are to identify and characterize the dynamic performance of hexapod machine tools by establishing a method for modeling and system parameter identification. The method incorporates a coordinated three-pronged approach of experiments, analysis, and reconciliation/validation. Finite element modeling will be used to guide the experimentation and validate the structural dynamic model. Both finite element modeling and rigid body/lumped parameter modeling facilitate the identification of critical system parameters, platform configurations, slewing trajectories, sensor locations, and type of excitation. Component mode synthesis techniques will be used to combine the structural dynamics and rigid body/lumped parameter models into an overall model of the hexapod machine tool dynamics. Augmentation and reconciliation of the hexapod machine tool models will be performed using parameter estimation techniques. The research work plan involves theoretical modeling and simulation, and a series of experiments conducted at Sandia National Laboratories followed by full implementation of the method on both of hexapod machine tools at Sandia. Input from the project's industrial advisory committee will facilitate testing, standardization, and benchmarking. The research will provide a systematic method for generating a validated dynamic model of hexapod machine tools. This forms a basis for possible widespread adoption of hexapod machine tools as a new machining paradigm in industry.